Spin Polarized Electron Spectroscopic Studies of Magnetic Materials

Spin-dependent elastic and inelastic electron scattering will be used to study the magnetism at surfaces and in ultra-thin films. The spin-dependence of inelastic scattering in localized magnetic moment systems (3d transition metal oxides and rare earth materials) will be studied by spin polarized electron energy loss spectroscopy. The energy resolution will be improved by employing a new spin detector in order to reach the energy range of collective magnetic excitations. The spin-dependent attenuation of electron through ultra-thin ferromagnetic overlayers will be studied by spin polarized photoemission spectroscopy. The structure and magnetization for ultra-thin films will be studied by combining quantitative LEED and SPLEED analysis and polarized secondary emission spectroscopy on ultra-thin films. Spin polarized LEED measurements will be compared to state-of-the-art theoretical calculations, thereby allowing a simultaneous investigation of the geometric and magnetic structure of the films.